U.S. National Committee for Theoretical and Applied Mechanics

The U.S. National Committee on Theoretical and Applied Mechanics (USNCTAM) represents the U.S. mechanics community to the International Union of Theoretical and Applied Mechanics (IUTAM) on behalf of the National Academy of Sciences (NAS). The national committee serves as the focal point for the U.S. engineering, scientific, and applied mathematics communities that have common interests in the field of mechanics. It is the national forum to define the major issues in mechanics research, technology, and education. It also provides a network through which the National Science Foundation(NSF) and the National Academies enhance their capacity to contribute to global research, technology and education.

The committee has both national and international impact. Nationally, it oversees the organization of the quadrennial National Congress of Theoretical and Applied Mechanics (NCTAM); steer research directions in mechanics; and connects with the broader mechanics community through its website and its members who serve as representatives of the committee's 15 member societies. Internationally, the committee plays an active role in two of the major IUTAM activities including the quadrennial International Congress of Theoretical and Applied Mechanics (ICTAM) and the IUTAM symposia, which are small meetings (70-100 attendees) that focus on new research topics. The committee supports U.S. involvement in these activities through its congress fellowship program and its encouragement of symposia proposals.